U.S.-Iceland Cooperative Research: Multiple Inputs - Multiple Outputs (MIMO) Control Design

This award supported by the Division of International Programs allows Marianthi Ierapetritou of Rutgers University to collaborate with Prof. Anna S. Hauksdottir of the University of Iceland in Reykjavik. The project will develop methods and solutions for the control of multiple-input multiple-output systems by simultaneous decoupling and pole placement with canceling the invariant zeros that arise in classical methods. In contrast to other methods, this procedure will give the system feedback robustness.

This project will combine classical control theory with state-of-the-art advances in optimization and process systems engineering. The method should alleviate problems that exist with other modern techniques and can have an impact in better understanding the fundamental limitations, constraints, and trade-offs in feedback control systems. The results should impact the application of the method to chemical engineering problems as well as to multiple-input multiple-output problems in general.